Collaborative Research: Scientists' Views of the Public, Public Engagement Practice, and Public Engagement Goals

This Michigan State University and University of Texas-Austin project will focus on making science communication more scientific. It will primarily use interview and survey research to improve societal understanding of how those involved in science communication, particularly scientists, think about science communication. The goal is to use this knowledge to help improve science communication training and recruiting with a focus on increasing the likelihood that scientists will adopt evidence-based communication strategies to increase public interest, engagement, and identification with science, technology, engineering, and math (STEM). A central underlying reason for the study is a mismatch between scientists' motivations and goals when interacting with public audiences and what research suggests would be the most positive and productive with public audiences. This study is funded by the Advancing Informal STEM Learning program, which seeks to advance new approaches to, and evidence-based understanding of, the design and development of STEM learning in informal environments. This includes providing multiple pathways for broadening access to and engagement in STEM learning experiences, advancing innovative research on and assessment of STEM learning in informal environments, and developing understandings of deeper learning by participants.

The project will be conducted in three phases. The first is interviews with a wide range of science communication experts to assess priority research questions. These interviews will be followed by surveys with U.S.-based members of up to 10 different scientific societies representing a broad range of academic fields as well as a survey of science communication researchers. The survey will focus on three different public engagement modes, including face-to-face engagement, online engagement, and engagement via the news media. Consistent with the Theory of Planned Behavior, the surveys will assess scientists' attitudes about public engagement and specific public engagement goals, as well as perceptions of social norms (both descriptive and injunctive) and efficacy beliefs (both internal and external). These will be used as predictors of general and goal-specific engagement willingness, as well as reported past behavior, using multigroup modeling. Potential communication goals of interest include transferring knowledge, developing interest and excitement, building trust in scientists, demonstrating openness and a willingness to listen, shaping how people think about subjects (i.e. framing), and/or defending science. The final phase of the project will explore the potential to design experiments aimed at testing the impact that mention of specific goals has on communication training recruitment as well as the degree to which online content about various goals is attractive to scientists interested in developing their communication skills. The research is the most targeted and largest attempt to date to understand how scientists' views about the public and communication processes may shape science communication behavior.